Project PreEMPT Tech: Preparing Effective Mathematics Preservice Teachers with Technology

Roger Day DUE 9551240 Illinois State University FY1995 $ 45,780 Normal, IL 61790 ILI - Instrumentation Project: Mathematics Title: Project PreEMPT Tech: Preparing Effective Mathematics Preservice Teachers with Technology Computer technology impacts upon both the discipline and teaching of mathematics. Technology's capacity for graphical, symbolic, and numerical manipulations signals a change in what it means to do mathematics. Technology provides new resources for learning. In a laboratory setting, technology can foster investigation and exploration of students' ideas. Future mathematics teachers must be able to use technology as a tool for both doing and teaching mathematics. Project PreEMPT Tech provides a technology rich learning environment to support the development of secondary mathematics majors. The project builds upon several initiatives within the department - a new course for preservice teachers, integration of reform calculus materials and teaching methods, a new emphasis on data analysis in statistics-have laid the foundation for comprehensive use of that environment. Because ISU prepares more secondary mathematics teachers than any other institution in the state of Illinois, this unified effort in curriculum and technology advancement promises to have great impact.